High-Order Numerical Simulation of Focusing Nonlinear Waves in the Non-Paraxial Regime

The key objective of the project is to build a quantitative predictive capability
for the focusing nonlinear electromagnetic waves. A standard mathematical model
for describing this type of problems is the nonlinear Schroedinger equation (NLS).
By now, this equation is relatively well studied. There are, however, indications
that the NLS model may be oversimplified. An alternative is provided by a more
comprehensive nonlinear Helmholtz equation (NLH), from which the NLS is, in fact,
derived by employing the so-called paraxial approximation and neglecting the
important phenomenon of backscattering. In contradistinction to the NLS, relatively
little is known about the solvability of the NLH and uniqueness of its solutions.
Moreover, this equation presents a considerable challenge for the numerical approach
as well. Nonlinearity is a major hurdle, as it implies that the impinging and
(back)scattered waves cannot be separated. Another key difficulty is the small
magnitude of backscattering compared to that of the forward propagating wave.
In the course of the project, the PI and his colleagues will develop, implement,
and test an efficient numerical procedure for integrating the NLH. It will involve
major modifications and improvements to the previously proposed methodology that
has already proven successful and, in fact, unparalled in the literature. The
methodology employs a high-order finite-difference approximation. Its central
element is a special two-way nonlocal artificial boundary condition that makes the
outer boundary transparent for all the outgoing waves and at the same time is capable
of accurately prescribing the given impinging signal. It is expected that with the
help of this methodology, a valuable new insight will be gained into a number of key
outstanding questions in nonlinear optics, in particular, whether the nonparaxiality
and backscattering may arrest the collapse (blow-up) of focusing nonlinear waves, and
whether the NLH is capable of sustaining the so-called narrow spatial solitons, with
the width on the order of only several wavelengths.

In the course of the project, a numerical methodology will be built to simulate the
propagation of intense laser light through a variety of media and materials. This
methodology has a solid mathematical foundation, and is expected to help address
a number of challenging issues in the theoretical nonlinear optics. In addition
to its potential theoretical merits, the methodology will be useful from the
standpoint of applications as well. Indeed, the propagation of laser beams in
materials is typically accompanied by the phenomena of nonlinear self-focusing and
backscattering. The capability to quantitatively analyze and predict these key
phenomena is extremely important for many of applications in modern science and
engineering. The latter range from remote atmosphere sensing (when an earth-based
powerful laser sends pulses to the sky, and backscattered radiation accounts for a
substantial part of the detected signal), to laser surgery (propagation of laser beams
in tissues), to transmitting information along optical fibers. There are other possible
applications that involve, e.g., interactions between the co-propagating or counter-
propagating laser beams. They may provide a vehicle for designing the so-called all-
optical switches for the next generation of opto-electronic circuits. The proposed
numerical methodology will yield a powerful tool for the accurate and robust analysis
of the foregoing applications, along with many others.